Doctoral Dissertation Research in Geography and Regional Science

Urban planning has come under attack recently for failing to improve urban society. Although many facets of American cities now appear to be in worse condition than they were 30 or 40 years ago when urban planning was actively embraced by most municipalities, it is not certain what impacts planning had on the shaping of urban society, which planning techniques worked and which failed, and the extent to which mistakes from the past are being repeated today. This doctoral dissertation project will systematically evaluate records from and contemporary patterns in dozens of American cities, many of which formulated Section 701 comprehensive plans from the late 1950s through the 1970s. Focusing on the distribution of parks and recreational facilities, this project will use accessibility measures to compare the planned locations of these facilities with the actual geographic distributions that subsequently emerged. Through analyses of these measures, the degree to which comprehensive plans helped ensure more equitable distributions of park and recreation facilities in cities will be assessed. This project will provide solid empirical analyses of the influence of comprehensive planning on the locational distribution of urban services for a diverse range of cities. In addition to evaluating the success of comprehensive planning in meeting one of its goals, this project will provide valuable insights into the factors that contributed to the success and failure of planning efforts, and it will help assess the degree to which planners have learned from their past experiences. As a doctoral dissertation improvement award, this award also will provide support to enable a promising student to establish a strong independent research career.